Fundamentals of Photoelectrolysis of Hydrogen with Hot Electron Guns - An R & D Project

The goal of this project is to develop an "electron gun" to generate hydrogen directly from sunlight. The physical system consists of a semiconductor coated by a thin (less than or equal to 50 angstrom) metal layer (e.g., platinum) which allows most of the light to penetrate through it to the semiconductor. In the semiconductor, light quanta are absorbed and hole-electron pairs generated. The electrons will then accelerate through the metal coating out to the surrounding water and interact to create hydrogen.